America's Academic Future: An Action Agenda for 2010

The objectives of this proposal is to initiate the first part of an overall project to develop an action agenda to foster national implementation of the principal vision of the recent Presidential Young Investigator (PYI) Colloquium report, America's Academic Future. An action agenda for 2010 will be developed through two, inter-related efforts. First, a series of five inter-connected colloquia, and data gathering activities, will be held that focus on developing specific strategies, models, and mechanisms to (a) recognize co-equally the instructional scholarship, public service, and research excellence of engineering, mathematics, and science faculty, and (b) increase substantially resources for instructional innovation and curriculum renewal, especially for undergraduate instruction. Second, (a) a network will be developed among the past and present PYIs, and future NSF Young Investigators and Presidential Faculty Fellows, who are committed to providing a high-quality education for all students and increased career participation in engineering, mathematics, and science by all segments of society, and (b) an ethnographic study will be conducted of the PYI population to assess its current future impact on higher education and to gain insights useful for future NSF programming.